Theoretical Studies of Spectroscopy and Dynamics of Molecular Systems

Hua Guo at the University of Toledo is supported by the NSF Theoretical and Computational Chemistry Program for theoretical investigations of chemical reaction dynamics. His two major areas of research are iterative methods for solving generalized eigenproblems and classical trajectory simulations of surface photochemical processes. New efficient numerical methods will be used to calculate both bound and resonant spectra of systems of atmospheric and combustion interest, as well as absorption spectra of predissociative systems. Surface-aligned photochemical processes will be studied with classical trajectory simulations of adsorbate-adsorbate and adsorbate-substrate interactions. The concern of this work is understanding the spectroscopic and dynamical properties of large molecular systems, in the gas phase and on surfaces. The details of photo-induced chemistry, in general, and of photodissociation, in particular, depend on the interaction energies among the atoms in the system. However, it is not simple to correlate these to the identity of the reaction products and to the energy distribution over these products. The studies being carried out in this project will enhance the understanding of the relevant relationships and stimulate new experimetnal explorations.